Acquisition of a Modularly Expandable Mixed Signal IC Tester

9413533 Shankar This award will provide an IC tester for VLSI circuits and Integrated IC Systems. This tester will be part of a new Center for VLSI and Systems Integration (CVIS). The tester will be used in the following research projects associated with CVIS: (1) Integration of test into hierarchical structured design methodology; (2) Mixed signal testing and eventual integration into a seamless environment; (3) Characterization of low voltage analog and digital designs; (4) VLSI for parallel optical character recognition; (5) Testing of MEMS; and (6) Testing of MCM packages. ***